Replacement Modules in Mathematics for the Middle Grades: Continuation of the UIC-Manuevers with Mathematics Project

The UIC-Maneuvers project is to develop five replacement units for the middle grades. These will be continuations of five previously developed modules. There will be modules on topics such as Percent and Sports, Speeds, and Sizes. The use of scientific calculators will be involved as a key element in each module. In addition, open ended problems will be emphasized. Material for teachers and parents will be developed as well. There will be a formative evaluation in the development of the material and a summative evaluation of the entire project including assessment of student learning. Finally, the modules finished under a previous project were published by Dale Seymour and he has indicated an interest in the proposed modules.